Presidential Young Investigator Award: Microfabricated Drug Delivery Systems

The goal of this work is to develop a conductimetric microsensor for glucose for potential application in an artificial pancreas. The sensor is to be formed by coating planar interdigitated electrodes with a hydrogel that swells reversibly with water in the presence of glucose. The concomitant changes in the electrical conductivity of the gel are manifest as a change in the electrical impedence of the electrode structure. The initial work involves development and characterization of gels with suitable properties, followed by formulation of the gels into photomaskable forms compatible with IC processing. The project is also investigating a more sophisticated sensing strategy, which uses multiple electrode geometries to attempt to improve the specificity of conductimetric sensors.